Graduate Research Fellowship Program (GRFP)

The National Science Foundation (NSF) Graduate Research Fellowship Program (GRFP) is a highly competitive, federal fellowship program. GRFP helps ensure the vitality and diversity of the scientific and engineering workforce in the United States by recognizing and supporting outstanding graduate students who are pursuing research-based master's and doctoral degrees in fields within NSF's mission. GRFP provides three years of support for the graduate education of individuals who have demonstrated their potential for significant achievements in science and engineering research. The award to this GRFP institution supports NSF Graduate Fellows pursuing graduate education at the institution.